Shock Waves in Macroscopic and Microscopic Models

0104019
Liu

It is proposed to study the shock wave theory for conservation laws and
the Boltzmann equation in the kinetic theory. Shock waves occurs in many
natural phenomena, such as supersonic flight, sonar wind, earthquakes and
hurricanes. There is now a satisfactory mathematical theory for the
inviscid plane motion. It is planned to study the multi-dimensional gas
motion as well as the dissipation effects. The Boltzmann equation models
the gas motion on the microscopic level. This is necessary for important
physical phenomena such as the thermal effects of the boundary on the gas
motion. The nonlinear waves and the boundary effects for the Boltzmann
equation will be studied.

The Euler equations and Navier-Stokes equations for the gas dynamics are
considered. The project will include the study of the nonlinear stability of
shock waves for these and more general systems of hyperbolic-parabolic
conservation laws. The approach combines the pointwise estimates and the
energy estimates and is based on the new understanding of the structure of
the Green's function for the equations linearized about the shock. For the
Boltzmann equation, the positivity of Boltzmann shocks has been shown
and the boundary effects such as the thermal creep are being studied.
These are based on the new macro-micro decomposition of the Boltzmann
equation and time-asymptotic analysis.